III:Small: Overlapping Clustering Analysis of Biological Networks

This project forms an interdisciplinary research team with integrated
expertise of computer scientists and biomedical scientists to tackle
the challenging issues in analyzing protein interaction data. Specifically,
the project develops a novel approach to detecting overlapping clusters on
emerging large volume of protein-protein interaction data and validates
the computational approaches in yeast. The vast amount of protein-protein
interaction data provides us with a good opportunity to systematically
analyze the structure of a large living system and also allows us to
understand essential principles like essentiality, genetic interactions,
functions, functional modules, protein complexes, and cellular pathways.

The identification of functional modules in protein interaction networks is
of great interest because they often reveal unknown functional ties between
proteins and hence predict functions for unknown proteins. A protein may
be included in one or more functional groups. Therefore, overlapping clusters
need to be identified in protein interaction data.

This project develops a
unique method to integrate domain knowledge with the protein interaction
data so that the data will be more reliable. It also develops
a unique method to support overlapping modularity analysis for
protein interaction data that intelligently integrates biological
information into the modularity analysis process. Another unique
aspect of this project is the tight integration of computational methods
with biological verification. By associating unknown proteins with the
known proteins within each functional module, we can suggest that
those proteins positively work for the corresponding functions that
are assigned to the modules.

This project can also find broad applications in other areas which
handle data with the modular network property, such as web network,
social networks, and technological networks.

For further information see the project web page:
http://www.cse.buffalo.edu/DBGROUP/PPI-networks/index.html